Knowledge-Based Expert Systems for Civil Engineering, Award in Indian and U.S. Currencies

Description: This project supports cooperative research by Dr. Steven J. Fenves, Department of Civil Engineering, Carnegie Mellon University and Dr. C. S. Krishnamoorthy, Department of Civil Engineering, Indian Institute of Tehnology, Madras in the area of knowledge-based expert system (KBES) in civil engineering design. The aim is to provide a synergistic merger between U. S. research results in the development of KBES for engineering design and Indian research on local civil engineering design practice, thus producing a set of computer tools that can substantially improve the efficiency and economy of structural design in India and other developing countries. The specific area of research planned is that of KBES for structural design including preliminary design analysis and detailed component design. The three KBES to be developed are to deal with multistory reinforced concrete buldings, concrete bridges, and single-story steel industrial structures. The resulting KBES will be exstensively evaluated by leading designers and practicioners. Scope: The area of this research is of great interest because of the wide range of knowledge-based programming strategies that need to be incorporated and the variety of local expertise that must be collected, organized and formalized. The U. S. scientist is a pioneer reasearcher in KBES with a very good reputation in artificial intelligence application in civil engineering. The Indian scientist has broad experience in research and practice, and the joint effort should lead to a fruitful product. The project is being funded under two grants: Carnegie Mellon Univiversity INT8819520 ________________________________________ FY89 $3,960 Indian Currency FY90 $3,960 Indian Currency +U.S.$17,784 FY91 $3,960 Indian Currency +U.S.$7,020 Indian Institute Technology, Madras INT8913816 _______________________________________________ FY89 $88,907 Indian Currency FY90 $24,407 Indian Currency FY91 $28,614 Indian Currency